Enhancement of Undergraduate Molecular Biology Instruction: ILI Award

This award provides funds to update the molecular biology instructional program at the University of Southern Mississippi by establishing an intensive "hands-on" laboratory in molecular biology/biotechnology. The laboratory in molecular biology will give the students practical experience in the fundamental techniques that form the foundation of experimental molecular biology. The major instruments to be obtained include growth chambers, electrophoresis equipment, UV spectrometers and low temperature storage units. The grantee is matching this award with non-Federal sources.